How Does Teachers' Visual Scaffolding Support Students' Mathematics Learning

Mathematical reasoning requires understanding connections between different representations of mathematical information. The way mathematical representations are linked in the classroom may determine whether students come to understand important mathematical principles and procedures. Our past research showed that teachers use various forms of visual scaffolding to link different mathematical representations. The purpose of this project is to understand how variations in teachers' visual scaffolding affect students' learning. Our specific focus is on the nonverbal supports that teachers produce in instructional episodes that link related representations of mathematical information. In particular, we examine those nonverbal supports that serve to ground ideas in the physical environment or in familiar actions, experiences or representations. The research has three aims: (1) to investigate whether students' learning is facilitated if teachers ground the to-be-linked ideas with hand gestures (as opposed to using speech alone); (2) to examine whether certain types of nonverbal supports are especially beneficial for learning (specifically, redundant vs. complementary gestures, and pointing vs. representational gestures); and (3) to examine whether gestures offer a "special" way to visually scaffold ideas, in the sense that they are more effective at doing so than other, non-gestural methods of visual scaffolding. We will address these aims in experiments with middle school students learning about linear equations. The experiments will involve video lessons that vary the teachers' gestures or the medium used to highlight aspects of the linked representations (hand gestures or digital icons). We will assess students' conceptual and procedural knowledge of linear equations before and after the lessons, so that we can evaluate how variations in teachers' visual scaffolding affect students' learning. We will also conduct a pilot study to prepare us to extend this line of inquiry to college students learning about statistics. This pilot study will investigate how teachers link representations using speech and gesture in instruction about confidence intervals.

This work will contribute to our scientific understanding of learning and instruction from an embodied cognition perspective. By experimentally manipulating the ways in which relations between mathematical ideas are conveyed, and exploring the consequences for learning, we will gain a deeper understanding of the cognitive processes involved in acquiring mathematical understanding. This work will provide an empirical basis for recommendations about how teachers can use visual scaffolding effectively.